Neuroendocrine Control of Amphibian Metamorphosis

For over two centuries, amphibians have been primary models for embryological and developmental studies. Much of what we know about early embryonic development, the techniques for the successful culture of embryos in vitro, and the role of hormones in early development have come from studies on amphibian eggs and tadpoles. Because amphibian eggs develop outside of the mother's body, it is relatively easy to culture them in the laboratory and to experimentally manipulate them. The vast majority of what we have learned about the developmental biology of amphibians is directly applicable to our understanding of human development. Dr. Nicoll will examine the role of hormones in early development of amphibians, and will determine how external environmental variables can influence hormone production and the rate of development. He is focusing on the corticotropin-releasing hormone system since the release of this hormone may represent a phylogenetically ancient initiator or cue in development. He will determine how this neurohormone regulates the secretion of thyroid-stimulating hormone and adrenocorticotropic hormones, two pituitary hormones known to be important in the metamorphic process. The basic information gained from these studies will contribute to our understanding of the complex events which occur within the womb during human development. Moreover, given the recent global decline in amphibian populations, the findings are directly related to the conservation of biological diversity. Identification of the environmental and physiological factors which influence development, and the ways in which amphibians respond to these variables through careful, controlled experimentation will help in the design of effective conservation strategies.